Travel Support for the l997 Dagstuhl Seminar on Deduction, February 24-28, l997, Wadern, Germany

An international seminar on automated deduction, organized by Prof. Wolfgang Bibel(Technische Hochschule Darmstadt, Germany), Prof. Ulrich Furbach (University of Kopblenz, Germany), and Dr. Mark Stickel (SRI International, Menlo Park, CA, USA), will be held 24-28 February 1997 at the Dagstuhl Seminar Center in Waden, Germany. About 70 automated deduction researchers from around the world have been invited to participate. This grant supports the travel of American invitees to the seminar. ***